Conference: Contemporary Combinatorics 2007

The aim of this conference is to bring together a group of outstanding mathematicians
loosely connected to combinatorics, understood in the widest sense. The meeting will give
a chance to mathematicians from the Mid-South to benefit not only from the lectures but
also from personal contacts with the speakers.
The main speaker at the conference is one of the most distinguished mathematicians today,
Peter Lax of the Courant Institute in New York, the recipient of the National Medal of
Science in 1986, the Wolf Prize in 1987, and the Abel Prize in 2005. Very accurately,
he has been described as the most versatile mathematician today. He started in pure
mathematics, but his greatest contributions have been to to the theory and application
of partial differential equations and to the computation of their solutions. In particular,
he constructed explicit solutions of nonlinear hyperbolic systems and identified classes of
especially well-behaved systems. Lax is also a wonderful expositor, the author of several
successful books, and a very approachable man.
There will be several other exciting speakers at the meeting; they have been chosen because
they are not only excellent mathematicians, but also wonderful expositors and very approachable
people. They include Vitaly Bergelson of Ohio State University, who has made
major contributions to ergodic theory, especially to recurrence theory stemming from the
work of Furstenberg inspired by Szemeredi's theorem on arithmetic progressions; Yuval
Peres from Microsoft Research and UC Berkeley, one of the most notable people working
on combinatorial aspects of probability theory; Sasha Kostochka from the University of
Illinois at Urbana-Champaign, a very powerful mathematician who is carrying the torch
for extremal combinatorics; Ralph Faudree from the University of Memphis, one of the
most frequent collaborators of Paul Erdos, an expert on Ramsey-type problems; Stephanie
Gerke of ETH in Zurich, who has done beautiful work on the interface of pure mathematics
and computer science; Tom Trotter of Georgia Tech, one of the founders of the modern
theory of partially ordered sets; Boris Pittel from Ohio State University, one of the best
people working on probabilistic combinatorics; and Mark Walters from the University of
Cambridge, England, who has proved much about random bootstrap percolation and random
geometric graphs. Andr'as Gy'arf'as from Budapest will give a special 'public' lecture
aimed at a very wide audience, including some of the best high school students from the
area.
Unlike the East Coast or the Bay Area on the West Coast, the Mid-South cannot boast of
many high-level mathematical conferences; the Contemporary Combinatorics 2007 meeting
in Memphis goes some way towards redressing the balance. The formula whereby personal
contacts between the lecturers and the other participants is greatly encouraged was found
to be very successful a year ago, and this what we hope to do at the 2007 meeting as
well. There is no doubt that listening to lectures by Peter Lax, Vitaly Bergelson, Yuval
Peres, and others, and, especially, talking to them during the conference will be very
inspiring for young and established mathematicians alike. The NSF grant is absolutely
vital for the success of the meeting; most of it will be used to help graduate students and
senior mathematicians come to Memphis so that they can benefit from the lectures and
the personal contact with the speakers.